Asymptotic and Algorithmic Invariants of Groups

The investigators study asymptotic and algorithmic properties of groups. The area of research includes Dehn functions and relative Dehn functions of groups, the complexity of algorithmic problems of groups, Burnside problems for groups. Many papers published during the last forty years showed deep connection between asymptotic invariants of groups and topology, geometry, amenability, dynamical systems, etc. Quite
recently, the proposers (jointly with Rips and Birget) discovered a close
relationship between the asymptotics of isoperimetric functions, on the one
hand, and the complexity of the word problem for groups, on the other hand.
The investigators are developing their method, combining geometric and
computational approaches. One of their goals is to obtain the solution
of other algorithmic problems using geometric group theory. In particular
the investigators believe they will be able to prove that every recursively presented
finitely generated group can be embedded into a finitely presented group
with the same degree of unsolvability of the conjugacy problem. This would
solve a problem formulated by Collins in 1976.
The computational-geometric methods of the investigators also show promise of being able to be fruitfully applied to the Burnside-type problems.
The investigators are close to constructing non-amenable finitely presented
groups having no non-cyclic free subgroups. This will solve the
corresponding well-known problem which goes back to von Neumann's 1929
paper. Since the group in question is a finitely presented extension of a
torsion group of finite exponent by a cyclic group, this example will be
a breakthrough in the search for a finitely presented torsion
group (one of the main open problem in the theory of infinite groups).

It is a well known point of view after Klein, Hilbert, Einstein and Weil
that fundamental laws describe symmetries occurring in the nature. The
symmetry of an object can be measured by the group corresponding to the
object. Groups can be defined as groups of symmetries or abstractly by an
algorithmic description (generators and relations). In the second approach,
the investigators choose some basic symmetries (generators) so that all other symmetries
are compositions (words) of the basic symmetries, and describe certain
relations between the basic symmetries such that all other relations follow
from the chosen relations. One of the main problems about a group given by
generators and relations and relations is the word problem: when are two
compositions of generators the same? In some exotic cases this problem can
be undecidable, that is there are groups for which there are no automatic
procedures to recognize if two words of generators are equal. but even
in cases when this problem is decidable, the automatic procedure can be very
complicated. In recent years the investigators discovered a deep
relationship between the word problem of a group and the global geometry of
the group. The geometry of a group is described in terms of certain
asymptotic invariants. The invariants have been known since the pioneering
works of M. Dehn at the beginning of the 20th century but the investigators
discovered deep relationship between these invariants and algorithmic
problems. The investigators are developing their geometric method solving
old mathematical problems of algorithmic nature and corresponding algebraic problems about groups.